Data Compression for Network Performance Improvement with the Aid of Content-Addressable Memory

9361386 Stormon This project is funded under the National Science Foundation's (NSF) Small Business Innovation Research (SBIR) program, which is designed to provide an opportunity for small business, particularly the small high technology firm, to participate in NSF research. Phase I of the SBIR program serves as a filter to select promising proposals and determine if the firm can do high quality research. Phase II is the principal research project. Phase III is the conversion of the NSF-funded research into commercial applications and technological innovation supported by follow-on private venture capital or other non-federal financing. This Phase I project studies the feasibility of using a programm able content-addressable memory as an efficient hardware implementation of data compression/decompression. The project concentrates on the loss less compression techniques essential for network applications.***